Natural Hazards Research and Applications Information Center

This award provides renewed support for the Natural Hazards Research and Applications Information Center at the University of Colorado in Boulder. The Center monitors and disseminates hazards research information to multiple users--administrators, practitioners, policy makers, scientists and engineers. The Center publishes and distributes the NATURAL HAZARDS OBSERVER to over 10,000 subscribers six times a year; operates an electronic newsletter, DISASTER RESEARCH ; and publishes monographs, working papers, bibliographies and special publications. It holds an annual workshop involving users and producers of hazards research, and it provides information on a day- to-day basis in response to inquiries. The Center conducts modest research activities relating to societal response to natural hazards and supports researchers throughout the nation as they carry out "quick response" studies of specific hazard events. Inaddition to NSF, several other agencies are also supporting this activity.